Optimization with PDE Constraints

The investigator and his colleagues focus on several
fundamental computational issues involved in the parallel
implicit solution of optimization problems with partial
differential equation The goal of the research is to advance the
state of the art in four fundamental topics: (1) the formulation
and analysis of algorithms for large-scale optimization; (2)
adaptive mesh generation for partial differential equations; (3)
multilevel partial differential equation solvers; and (4)
parallel computation. Although each of these topics can be
investigated in isolation, the exploitation of their interactions
is crucial for the creation of effective global algorithms. The
investigators are members of a Scientific Computation Group that
offers a program of instruction and research emphasizing the role
of scientific computation in the formulation, modeling, and
solution of problems from diverse and changing areas. A major
part of the project involves the development of software and its
dissemination within the manufacturing, engineering, and
scientific community. Software developed as part of the project
provides an effective method of technology transfer and extends
the scope and effectiveness of the existing codes PLTMG, MC, and
SNOPT developed by the investigators.
Because partial differential equations conveniently
characterize the physical laws of many complex systems occurring
in science and engineering, they also lie at the heart of the
mathematical models used to simulate and predict the behavior of
these systems. The need to optimize the performance of such
systems is the common feature of practical applications that
range over such diverse areas as the optimal design of the hull
of an America's Cup yacht, the cleanup of toxic waste sites, the
construction of bioartificial arteries in tissue engineering, and
the management of stock portfolios and hedge funds. Software
developed in this project provides engineers and scientists with
instant access to state-of-the-art methods for the modeling and
optimization of complex systems involving partial differential
equation constraints. The resulting improvements in the
efficiency, accuracy and robustness of these models have a
substantial impact in areas of manufacturing and engineering that
are vital to US global competitiveness.